Multicast Communication in Multicomputers

Ni This research project studies multicast communication, in which the same data packet is delivered from a source node to an arbitrary number of destination nodes. The project explores architectural support for multicast as well as software support for use in systems that do not provide architectural support.